Auto-Analytical Equipment to Analyze Large Numbers of Water and Soil Samples

An auto-analyzer capable of analyzing freshwater samples for nitrate and nitrate-nitrogen will be purchased. It will be used to study how man-made and natural disturbances and climate changes affect selected ecosystem processes at watershed, landscape and regional scales.